Industry/University Cooperative Research Center for Ultra- High Speed Integrated Circuits and Systems

9424109 Ku This award provides funding for an evaluator to study the industry/university interaction occurring in the University of California, San Diego's Industry/University Cooperative Research Center for Ultra-High Speed Integrated Circuits and Systems. The Center continues to meet the requirements for an Industry/University Cooperative Research Center. The study will document the interactions occurring between the industry and university researchers and will provide the data to the Program Data Bank maintained at North Carolina State University. The Program Manager recommends the University of California, San Diego be awarded $8,000 for the first year of a three-year continuing award.